Theoretrical and Experimental Studies of Laser Chemical Vapor Deposition for Selected Area Deposition of Pure Titanium

Laser Chemical Vapor Deposition (LCVD) techniques can be used to produce thin layers of materials with precise spatial control. Although this has been clearly demonstrated, little has been done to understand the fundamentals of the LCVD process. Experimental studies of the deposition mechanism for pure titanium will be conducted using optical, thermal and chemical properties. The results will be used to develop generic mathematical models for the deposition process.